REU: Research Experiences for Undergraduates

This is a Research Experiences for Undergraduates project. It will provide research experiences for eight students at Boston University. Students will participate in projects involving neurobiology, regulatory biology, cell physiology and plant and animal ecology.